Evolution of Complexity in Vocal Repertoires: A Comparative Phylogenetic Study

Standard practice in animal communication studies is to define signal units subjectively. In this pilot study, the researchers will explore the feasibility of using recently developed quantitative methods to define objectively the basic signal units (notes) in the vocalizations of a monophyletic group of birds (chickadees). After assessing the performance of the computer- based SIGNAL Sound Analysis System, they will assess intra- population and inter-population variation in several common notes of representative species. They will then define the entire repertoire of a previously unstudied species in a hierarchical manner by examining clusters of similar combinations of note- types. Finally, they will assess the feasibility of using vocal data for phylogenetic reconstruction. If these preliminary studies are favorable, they will propose a follow-up project using these methods to reconstruct the evolution of vocal complexity in chickadees. This study, should it prove generally successful, will clarify hypothesized analogies between human and animal communication systems. For example, human phonemes and animal note-types function similarly as basic units of differentiable sound. Although human and animal communication systems differ quantitatively in the amount of information they can encode, they may have converged evolutionarily on a generally optimal organizational framework founded on a few dozen distinct sounds. This similarity suggests that similar constraints on perceptual processing of sound operate in both systems.